Planning Visit to India to Establish and Develop Collaborative Social Science Research Project, Award in Indian and U.S. currencies

9505348 Deutscher Description: This is an individual travel award, for Dr. Irwin Deutscher, Professor Emeritus at the University of Akron. He is to visit several institutes in India to discuss research areas in social sciences concerning national identities and diversity among the various castes, nationalities, and groups in the Indian citizenry. His primary host will be the Department of Anthropology at Calcutta University. ***